Travel Support for the Symposium on Architectures for Networking and Communications Systems

The second ACM/IEEE Symposium on Architectures for Networking and Communications Systems (ANCS) will be held in Princeton, N.J. on Oct. 19-20, 2009. The ANCS conference has been created to provide a top-tier venue to bring together researchers from the areas of computer systems architecture and networking systems, in order to foster greater collaboration between these increasingly related research areas. The PIs plan to provide travel support to ANCS for up to 20 US-based students.